A Multi-Objective Decision-Making Tool For The Redevelopment Of The Calumet Region, Illinois

The Calumet Region in Chicago provides a unique opportunity to explore redevelopment options that marry environmental and economic development concerns. Several apparently competing options have been proposed but no formal economic assessment has been provided. The proposed research will develop a user-friendly PC-based software system to enable analysis of the anticipated benefits from a set of 5-10 development options. Care will be taken to integrate economic and environmental concerns by combining qualitative and quantitative information. The system will be field-tested with various environmental and economic development organizations who represent the major stakeholders in the region. A unique feature of the project is the cooperation among a diverse group of University of Illinois scholars, the City of Chicago Department of the Environment and the Chicago Academy of Sciences.